Mathematical Sciences: Sampling Based Methods for Bayesian Computation

The calculation of marginal posterior densities is an essential component of the application of Bayesian inference to data. This research involves the use of the method of Gibbs sampling in the computation of these densities when they are represented as integrals over spaces of extremely high dimension. Theoretical issues addressed include the extension of the "ratio of uniforms" method of sampling to multivariate distributions as well as accurate calculations of expectations. The development of satisfactory convergence criteria will also be attacked. In particular, a formal methodology that yields an automated decision will be sought.